Building Blocks of the Universe

The Center of Science and Industry in Columbus, OH and the Science and Technology Interactive Center in Naperville, IL collaboratively plan to develop a series of interactive exhibits on nuclear and particle physics that will convey to a wide audience an understanding of the fundamental nature of the universe and of the basic rules that underlie that universe. The purpose is to lead the visitors from the perceived complexities of our surroundings to an unperceived simpler features of the subnuclear world. The collaborators propose to develop two duplicate copies of eight exhibits, with one copy for display at each of the two institutions. They also look to making the plans available to other science centers inexpensively and on a copyright-free basis. An added feature of the project is the collaboration between the Center of Science and Industry, an established science center, and the Science and Technology Interactive Center, an emerging one.